CAREER: Efficient algorithms for problems in combinatorial optimization

This project is concerned with efficient algorithms for combinational optimization, both more efficient algorithms for polynomial time solvable problems and approximation algorithms for NP-hard problems. In addition the project is concerned with related problems; submodular functions and flows, network flows, network design and connectivity and approximate LP solving.